SGER: Systems Dynamics Applications in Psychology

This research will apply the theory of nonlinear dynamical systems and chaos to generate models of psychological processes. The new mathematical and graphical methods of chaos will address features of dynamic aspects of new and existing data streams that have not previously been treated using formal techniques. The results will make the temporal structure of cognitive and behavioral patterns accessible to psychologists in a language common to physical, biological, and social sciences. Two examples of this approach are as follows: (1) The attractors of coordinated hand and mouth movements by newborn babies change in an interesting way after babies are given a taste of sucrose. This result is plain from inspection of the dynamic graph (phase- space trajectory), and could not be obtained by standard methods, except by piecewise spectrum analyses of coordinated time series, requiring substantial interpretation. The research will further apply nonlinear theory to the full data stream for movement in babies. (2) Dynamic maps show that, when people attempt to make a series of consecutive short-term forecasts for an unfamiliar, chaotic, but not completely random process, the anchoring strategy produces an accurate behavioral analogue of the process but inaccurate forecasts (one-step out of phase). People who have had more exposure to the process make very accurate short- term forecasts. The research will gather new forecasting data and use dynamical maps to show graphically and mathematically how the behavioral analogue of the chaotic process moves from out-of- phase to in-phase. The dynamic maps of strategies may well become a standard method for tracing the formation of concepts and expectations. In the future, this research may be useful in an educational context, contributing to understanding of cognitive processes that are sometimes problematic and are defined in terms of dynamic properties, such as distractibility and attentiveness; it may also contribute new techniques for assessment and instruction of individuals, based on the principles of optimization of dynamic processes.